TRIUMPH; Techniques of Research - Investigating and Understanding Mathematics and Physics

The University of North Carolina at Greensboro will initiate a two-week, commuter, Early Alert Initiative project in mathematics, physics and computer science for 36 eighth grade girls. In each of two cycles of the project, the students will complete a case study on mathematics and physics topics during the academic year, and one of six research projects (in number patterns, statistics, computers, astronomy, energy sources, and physics of toys) during the summer. The girls will meet once next Fall for follow-up discussion of the work. They will learn content, research techniques, and philosophy and ethics of physics and mathematics. They will explore careers through meeting five staff women, five visiting women, and five undergraduate and two graduate women student in mathematics and physics.